Conference: Mathematical Foundations of Artificial Intelligence Principal Investigator Meeting

This grant supports the Mathematical Foundations of Artificial Intelligence Principal Investigator Meeting to be held November 6-7, 2026, at the University of Pennsylvania in Philadelphia, Pennsylvania. Artificial intelligence is rapidly transforming science, technology, and society, creating an urgent need to deepen understanding of the mathematical principles that underlie modern AI systems. This meeting will bring together researchers supported by the National Science Foundation's Mathematical Foundations of Artificial Intelligence program to share research accomplishments, exchange ideas, and develop cross-project collaborations. The meeting will also provide opportunities for students and postdoctoral researchers to present their work, build professional networks, and engage with leaders in the field. The meeting will help advance our fundamental understanding of AI and will strengthen the national AI research community.

The Mathematical Foundations of Artificial Intelligence (MFAI) Principal Investigator (PI) Meeting will convene PIs from the National Science Foundation (NSF) MFAI program to disseminate research results and foster collaboration. Each MFAI project will have a guaranteed opportunity for a research presentation, complemented by invited keynote talks and two poster sessions featuring students and postdocs supported by MFAI awards. The meeting will provide a forum for discussing advances in the mathematical foundations of artificial intelligence and identifying connections among research efforts. The meeting will also facilitate professional development of MFAI trainees by prioritizing travel support for MFAI-supported students and postdocs and providing opportunities for them to present their research and establish collaborations. Talks will be recorded and made publicly available under a standard license. The meeting builds on the successful series of Mathematical and Scientific Foundations of Deep Learning Annual Meetings held from 2021 through 2025 and is intended to strengthen the national research community working on the mathematical foundations of AI. Workshop website: mfai.engineering.upenn.edu